Safety, Security, Rescue, and First Response

The University of Pennsylvania has joined the multi-university Industry/University Cooperative Research Center for Safety, Security and Rescue Research located at the University of South Florida and the University of Minnesota. The I/UCRC will bring together industry, academe, and public sector users together to provide integrative robotics and artificial intelligence solutions in robotics for activities conducted by the police, FBI, FEMA, firefighting, transportation safety, and emergency response to mass casualty-related activities.

The need for safety, security, and rescue technologies has accelerated in the aftermath of 9/11 and a new research community is forming, as witnessed by the first IEEE Workshop on Safety, Security and Rescue Robotics. The Center is built upon the knowledge and expertise of multi-disciplinary researchers in computer science, engineering, industrial organization, psychology, public health, and marine sciences at member institutions.